Computer Simulation and Control of Autonomous Underwater Walking Robots

This grant provides support for a cooperative research program involving the Naval Postgraduate School (NPS) in the United States and the Port and Harbor Research Institute (PHRI) in Japan. Support from the National Science Foundation is for the U.S. portion of the work, while a companion proposal from PHRI requests funds from the Japanese Science and Technology Agency for the Japanese component. On the U.S. side, the principal investigators have many years experience with autonomous vehicles and computer-controlled walking machines. On the Japanese side, PHRI has developed Aquarobot, the first autonomous underwater walking robot. This machine was designed specifically for unmanned inspection of sea-floor building sites and foundations. It is proposed to use the capabilities of NPS in the fields of artificial intelligence, robotics, computer graphics, and computer systems architecture, to extend the currently available theory for simulation and control of robotic vehicles to encompass the case of subsea walking machines. This theory will be validated by physical experiments with Aquarobot, and is expected to result in significant improvements in the performance of this vehicle in practical seafloor mapping applications. In addition, the theoretical and experimental findings of this research should be of value in supporting the subsequent design of more advanced subsea walking machines.